Oceanographic Instrumentation

PROGRAM: Oceanographic Instrumentation The University of Delaware's College of Marine Studies (CMS) requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the R/V CAPE HENLOPEN, a 120 foot vessel, which is owned and operated by the University. The PI will purchase a shipboard copy machine, Nisken bottles, a dissolved oxygen titration system, a box corer and a solar radiation sensor. The instrumentation was requested to provide adequate support for NSF-funded scientific research to be conducted on the CAPE HENLOPEN during 1993.